Light-Emitting Biological Photonic Crystals: A Bottom-up Route toward Biolasers

Non-Technical Description
Lasers are typically "manufactured" using expensive equipment and highly complicated fabrication processes. But can they be "grown" on cheap materials using fancy biotechnology? This project answers that question by turning to diatoms—microscopic, single-celled marine algae that naturally grow intricate, glass-like shells called "frustules". These biological shells possess perfect, naturally organized nanostructures capable of trapping and manipulating light with exquisite precision. However, native diatoms are naturally passive and do not emit light on their own, which has historically limited their use in lasers.
The goal of this project is to transform these abundant, naturally grown biomaterials into highly efficient, self-assembling microscopic “biolasers”. The research team will integrate tiny, engineered light-emitting particles called quantum dots into the structural framework of the diatoms. Two parallel paths will be explored to balance risk and innovation: physically painting the quantum dots onto harvested shells, and a more advanced biological strategy where living diatoms are fed non-toxic, silica-coated quantum dots so they incorporate them directly into their shells as they grow. By converting a living organism into an active optical device, this research bridges biology and physics to establish a brand-new paradigm for low-cost, scalable bio-manufacturing. The resulting technology promises to provide biotechnology with a revolutionary tool: ultra-bright, self-assembling biolasers capable of detecting various biomarkers, illuminating complex biomolecules, and advancing environmental monitoring. Integrated with this research, the project supports an educational initiative to prepare STEM workforce. In collaboration with the Baylor Mayborn Museum, the team will feature live biolaser demonstrations and a permanent video exhibit to inspire K-12 students and the general public in Central Texas, while providing advanced interdisciplinary training to graduate and undergraduate students in engineering and biotechnology.

Technical Description
This project explores a novel, bio-enabled synthesis strategy to realize active biological photonic crystals (PCs) and microscale biolasers via a bottom-up, ambient-temperature approach. Naturally occurring Coscinodiscus wailesii diatom frustules possess hierarchical micro- and nano-scale periodic features that function as highly efficient passive PC cavity resonators. However, their applications in active optoelectronics and optical biosensing are constrained by a lack of intrinsic luminescence. This research aims to overcome this limitation by integrating colloidal semiconductor quantum dots (QDs) as a gain medium within the diatom’s structural silica matrix to achieve enhanced light emission and ultimately stimulated laser resonance. The investigation is structured around two parallel synthetic methodologies to systematically study light-matter interactions at the biological interface:
1. Ex-situ Surface Functionalization: QDs will be electrostatically or covalently immobilized onto the surfaces of isolated frustules to establish a baseline model for evaluating the Purcell effect, optical feedback, and localized mode coupling between the host PC modes and the QD emitters.
2. In-vivo Metabolic Incorporation: To achieve true monolithic integration, living diatoms will be cultivated in a silica-deficient environment to metabolically drive the uptake of toxicity-suppressed, silica-coated core-shell QDs, facilitating intracellular incorporation into the regenerating frustule architecture during active growth phases.
Characterization will gain in-depth understanding of such multi-scale structural and optical hybrid biomaterial. Light-matter interactions, quantum efficiency, and the transition from spontaneous fluorescence to stimulated laser emission will be evaluated. The fundamental knowledge derived from this project will provide quantitative design rules for active, bio-derived mini-lasers, delivering a transformative biomanufacturing methodology to the fields of nanophotonics and biotechnology.